Studies of Singularities, Black Holes, and Gravitational Radiation

Inside a black hole, the object continues to become smaller and smaller under the influence of its own gravity until it becomes a point with infinite density and infinite gravitational field called a singularity. One project supported by this award involves working out the properties of the singularities formed in gravitational collapse, and in particular, the forces felt by any observer who approaches the singularity. One striking feature of the early universe is that the density, pressure, and all other properties are almost exactly the same at all points in space. It is not thought that this uniformity just happened: rather, it is expected that the very early universe was highly non-uniform and that it became uniform through some kind of smoothing mechanism. A second project will investigate two different possible smoothing mechanisms: one occurs during a period of extremely rapid expansion shortly after the Big Bang. The other occurs during a contracting phase of the universe that precedes the Big Bang.

It is thought that the singularity inside a black hole has both a spacelike piece and a null piece. This project will perform numerical simulations of gravitational collapse to explore the properties of both parts of the singularity. The simulation makes use of a tetrad formulation of the vacuum Einstein field equations. The spacetimes simulated have no symmetry, and the code has both parallelism and adaptive mesh refinement provided by Pretorius’ PAMR package. The code will use harmonic time slicing so that the surfaces of constant time approach arbitrarily close to the singularity without hitting it. This project will also perform numerical simulations to study mechanisms that make conditions in the early universe homogeneous and isotropic. In particular, a comparison between the standard cosmological mechanism of inflation, which occurs during a period of rapid expansion, and the ``ekpyrotic’’ mechanism, which occurs during a period of contraction preceding the Big Bang, will be performed. The codes use a tetrad formalism, no symmetry, and parallelism, and adaptive mesh refinement provided by PAMR. The codes use constant mean curvature slicing, so that when the universe becomes uniform, the slices become the standard cosmological time slices.